Non-uniform sampling and reconstruction:Theory and algorithms

Aldroubi
0103104
The investigator and his colleagues develop a mathematical
framework and fast computational schemes for the reconstruction
of functions, signals or images from noisy, very large sampled
data sets, acquired on nonuniform grids, by nonideal acquisition
devices. The problem of nonuniform sampling and reconstruction
is treated in the context of shift-invariant subspaces, Besov
spaces, and in arbitrary dimensions. The theory is developed for
the case when the samples are obtained from weighted averages.
Density conditions for exact reconstruction are established. When
the data are noisy, incomplete, or when the assumptions needed
for exact reconstruction are not satisfied, bounds on the error
between the reconstructed and original signal are derived in
terms of the sampling densities, the averaging functionals, and
the noise statistics. The development of the mathematical
framework and the computational schemes requires a new set of
techniques and ideas, and involves several areas of mathematics
including wavelet theory, frame theory, functional analysis, and
harmonic analysis.
The project is motivated by problems arising in data
transmission, geophysical exploration, astronomy, spectroscopy,
and biomedical imaging. The problem of reconstructing a signal or
an image from a set of nonuniform samples is encountered in many
applications of signal or image processing. For example, the loss
of data packets during transmission through internet or from
satellites can be viewed as a nonuniform sampling and
reconstruction problem. In geophysical exploration, the earth's
magnetic field is measured by a combination of airborn, fast
moving acquisition devices, as well as scattered stationary
devices resulting in highly nonuniform sampling patterns, and a
huge data set. The goal is to reconstruct the magnetic field and
use it to reveal geological features. In fact, modern digital
data processing of signals or images always uses a sampled
version of the original analog signals or images. However, the
sampling devices are never ideal, and the collected data consist
of average samples. Moreover these data are often very large,
incomplete, and corrupted by noise. The question then arises
whether and how the original signal can be recovered from the
data. Therefore the investigator aims to 1) quantify the
conditions under which it is possible to reconstruct a signal
exactly from different sets of nonuniform average-samples; 2) use
these analytical results to develop explicit, and computationally
efficient reconstruction schemes; and 3) analyze the performance
of the algorithms under adverse conditions, or when the data are
incomplete or corrupted by noise. The development of a theory and
algorithms that perform well under stringent and realistic
situations will help the analysis, processing and management of
very large data sets obtained digitally by new acquisition
modalities, and transmitted or received by communication networks
such as the internet, cellular phones, and other distributed
communication systems.